Greenhouse Renovation for Research and Education in Plant Science

9313436 Guiltinan This award allows Pennsylvania State University to renovate their complex of six greenhouses, a total of about 28,500 square feet of research and research training space. These greenhouses were built in 1949 and have not undergone any renovation since that time. The types of research carried out in this space include control of plant gene expression, control of plant cell expansion, biosynthesis of starch, plant growth regulation, effects of air pollutants on plants, and the molecular basis of cell recognition in plants. These greenhouses are also used for various graduate and undergraduate courses in plant science and specifically an interdisciplinary training program in advanced root biology. These facilities are used by 20 faculty, 8 postdoctoral fellows, 60 graduate students and about 145 undergraduate students. Thus, the renovations will impact a large number of mature researchers and existing research projects but a larger number of students being trained in biotechnology issues concerning plant science. This modernization project is important because of it's potential regional and national impact on the growing biotechnology infrastructure. ***